An Electric Energy Systems Laboratory Emphasizing Digital Information Processing

The new Electric Energy Systems (EES) Laboratory brings modern digital concepts, presented the most electrical engineering students in only a signal or information processing context, into an electric energy/power laboratory. Personal computer and special purpose microprocessors are used for recording, processing, and displaying on-line data taken from systems controlling and utilizing electric power. In addition, these computers are also used to actually control power electronic interface circuits. This new state-of-the-art laboratory is needed to sustain the energy/power subdiscipline in electrical engineering education. In particular, the laboratory will deal with three major areas: 1. Digitally-based power measurements, including signal conditioning, isolation, and computer manipulation and display of data. 2. Power electronic devices and interface circuits with control signals derived through both analog and digital information processing. 3. Electric energy-transferring, consuming, and conversion devices including transducers and rotating electromechanical converters. Student acquire a strong background in electric energy-related areas, pertaining to such application as robotics, machine tool control, and electric drives for transportation and manufacturing processes. This laboratory provides this background, though a hardware experience with flow-control, mode-conversion, and utilization of electric energy using modern digitally-based instrumentation and modern power-related instructional components.